Experimental Testing of an Equivalent Rock Mass Properties Theory

9610026 This research will experimentally test a promising analytical approximation for determining elastic moduli and strengths of jointed rock masses. The approximation in question is an equivalent properties theory that avoids the usual restrictive assumption of a representative volume element (RVE). The non-representative volume element (NRVE) theory tested here produces results that compare favorably with the true equivalent properties obtained for detailed computations. Comparisons form a series of numerical experiments in the elastic domain (Hooke's law), the seepage domain (Darcy's law) and the coupled domain (Biot's law) and recently in the elastic-plastic domain are usually within a few percent. The additional testing and verification undertaken here is therefore expected to be worthwhile. The main benefit of a technically sound procedure for estimating rock mass properties from the properties of the joints and intact rock between the joints is more accurate engineering design of excavations in jointed rock masses. Excavation analysis in very blocky rock masses and, at the other extreme, rock masses that are almost free from joints may be handled by existing methods. However, there is a large class of problems in between that could benefit from a demonstrably more reliable determination of rock mass properties. Benefits would eventually appear in the form of improved stability and economy of rock mass excavations. *****